Development of An Individualized Advanced Molecular Techniques Course

The equipment requested includes a DNA synthesizer, a DNA sequencing apparatus and power supply, a shaking water bath and x-ray film developing tanks. Together with equipment already available in the department, this equipment will give the PI the flexibility to tailor laboratory exercises to individual student interests. The course will teach students to understand the processes in addition to the mechanics of research in molecular biology.